Cyber Corps Initiative

This project creates a scholarship and support program for students in information assurance at the baccalaureate, Masters, and Ph.D. levels. It has an advisory board that sets directions, works with the students, and is helpful in arranging placements. The project includes a number of strong activities for students: mentoring, research, interaction with governmental agencies, and outreach, culminating in a degree in the field and appropriate placement in both internship and fulltime positions.